Supercomputing Strategies for Designing Complex Chemical Processes

In chemical process design, flowsheeting is a time-intensive phase which is done repeatedly. It deals primarily with mass and energy balances. This effort will research into more efficient and reliable methods of solving the equations that model a process flowsheet, taking advantage of new computer architectures. This research should provide an understanding of methods for exploiting vectorization and parallel processing in the solution of equations that model complex chemical processes. The results should be more broadly applicable to other engineering disciplines.